Integration of Fourier Transform Nuclear Magnetic Resonance into the Chemistry Curriculum

The use of NMR spectroscopy to study molecular structure and dynamics is now an essential element of an effective undergraduate chemistry program. The Chemistry Department at Connecticut College purchased a 250Mhz FT-NMR which is integrated throughout the curriculum. Students at the freshman level are introduced to FT-NMR in general chemistry with the hope that this introduction to this exciting technology will stimulate the students to continue to study sciences. Specific applications exploiting the full capabilities of the FT-NMR are incorporated into organic chemistry, spectroscopic methods, instrumental methods, biochemistry, physical chemistry, and the new course on synthesis and characterization of inorganic compounds. These applications enhance the understanding of theoretical concepts already introduced into the classroom. Also, undergraduate participation in faculty directed research is strong and expanding. The availability of FT-NMR enhances the ability of the students to carry out successful projects. The institution is matching the NSF grant with an equal amount of funds.